CNS Core: Small: Towards Internet-scale Permissioned Blockchain Infrastructure for the Mobile Internet

The project centers around Saguaro, a hierarchical permissioned blockchain system designed specifically for wide area networks with mobile nodes. Saguaro explores infrastructural design and systems models that are essential for realizing an Internet-scale hierarchical blockchain design compatible with modern 5G networks and beyond. Saguaro aims to provide a suite of consensus protocols to process transactions within and across domains with nodes that might follow different failure models. Saguaro will be topology-aware and will leverage the hierarchical structure of Internet-scale mobile networks to establish consensus on cross-domain transactions efficiently. To establish delay-tolerant mobile consensus, the project will explore novel consensus protocols that rely on communication between edge servers of local and remote domains to share a compressed version of the node's history.

5G's low latency, ultra-high reliability, and device to device communication, together with blockchains' transparency, immutability, provenance, and authenticity, reflect the immense potential of running a new generation of real-time data transactional applications on the mobile Internet. Saguaro will unlock the potential of a hierarchical permissioned blockchain designed specifically for edge and fog computing environments, targeting use cases ranging from mobile delay-tolerant micropayments in development countries, accountable edge applications and accountable cloud infrastructures. An affordable online for-credit master's course in Blockchain combining transaction processing and cryptography will be delivered at-scale, aimed at increasing accessibility of extremely high quality computer science education to all.